Strategic Planning for Parental Involvement in MST Education -- A Planning Grant

9705245 Van Slyke The Hattiesburg Area Education Foundation is conducting a 12-month planning project in preparation for a Parental Involvement project. The planning objectives include the identification of materials and strategies in use, actively engaging parents, teachers, and other partners in dialogue about standards for mathematics and science education and in strategic planning, developing a plan for replication and dissemination, developing an evaluation plan, and developing a full proposal. A broad-based planning team is conducting the planning activities.